Gordon Research Conference-Nuclear Waste and Energy

A conference on "Nuclear Waste and Energy" will be held in mid-July, 2000 in New London, New Hampshire, as part of the Gordon Research Conferences series. This conference will address topics of high scientific interest and of great practical importance. The number of young scientists being trained in the science and technology of nuclear waste is not sufficient to meet the needs of the United States. NSF support will make it possible for a number of younger investigators to attend the conference.